Women In Theory Workshop

The purpose of the workshop is two fold: first to deliver an invigorating
educational program and second is to provide an outstanding
opportunity to bring together women students from different departments,
across the country (and possibly internationally), so as to foster a
sense of kinship and camaraderie. And to provide access to the role
models in this area by having senior and junior faculty present.
Further enhancing this initial relationship with a long time mentoring
program which will be organized by Anne Condon. Our long term goal is
that these efforts will help widen the pipeline of women doing theory.

While there are groups for "Women in Computer Science" and "Women in
Engineering" at both the university and national level, our objective in
creating a "Women in Theory" workshop is to enable meaningful technical
interactions among the participants. There will be significant overlap
in research interests in this group to facilitate a technical program
that is interesting to everyone.

List of confirmed technical speakers:
Dorit Aharonov, Hebrew University, Shuchi Chawla, University of Wisconsin,
Madison, Julia Chuzhoy, TTI,
Irit Dinur, Weizmann Institute, Cynthia Dwork, Microsoft Research, Joan
Feigenbaum, Yale,
Shafi Goldwasser, MIT and Weizmann Institute, Tal Malkin, Columbia
University, Eva Tardos, Cornell,
Lisa Zhang, Bell-Labs

We will also have talks by the participating students and sessions
devoted to discussions on issues that are especially relevant to
female scientists such as finding a job and salary negotiations,
communicating with your advisor, and work-life balance, etc.